Stranski-Krastanov Growth in a Binary Eutectic System

9705081 Marks This grant aims at a fundamental understanding of the growth of metal films on semiconductors, with a view towards developing phase-diagrams which include finite size effects such as the depression of the eutectic temperature. Understanding the processes taking place at small sizes when the metal reacts with the substrate is almost virgin territory, even for as simple a system as Stranski-Krastanov (layer plus island) growth in a binary-eutectic. The research approach combines transmission electron microscopy under ultra-high vacuum conditions with more classic surface characterization techniques, exploiting a new experimental system at Northwestern University with some new techniques for obtaining atomic scale surface information. The primary questions to be answered are: (1) What are the atomic scale surface structures? (2) What is the atomic scale detail of surface defects such as domain and heterophase boundaries, not just at the outermost atomic layer? (3) Can we build phase diagrams of the monolayer and monolayer plus small particle regimes (l-10nm)? (4) How do we combine these with particle-size effects, Ostwald ripening and kinetic phenomena? Metals on semiconductors have been of substantial interest both scientifically and technologically for many years. %%% As the size of the metal film regions decrease (due to both the drive to achieve higher densities and for novel applications such as quantum devices), it is no longer possible to ignore finite size effects. This program explores the growth phenomena associated with such films. ***